Continuous Electrophoretic Separations in Micron and Submicron Channels

This renewal project, supported in the Analytical and Surface Chemistry Program, focusses on the development of new continuous electrophoretic separations in narrow channels coupled to capillary sample introduction. Professor Ewing and his students at Penn State University will pursue work to improve detection schemes for these separations using electrochemical arrays and post-separation derivatization for fluorescence detection. The goal of this work is to develop a fast continuous or sequential analysis protocol for very small samples taken from neuronal environments. Another focus of this work will be in using these methods to monitor enzymatic reactions in order to do drug screening. This project has both fundamental and applied goals that will advance the sensitivity and speed of small sample analyses. New developments in continuous electrophoretic separations of very small samples in narrow channels will be pursued in this project. Professor Ewing and his students at Penn State University will focus on substantial improvements in the detection limits for these separations using both electrochemical and fluorescence methods of analysis. An important aspect of this work will be enhancing the speed of these analyses using very small samples so that screening methods can be developed in fields such as neurochemistry and drug development. This project has both fundamental scientific components and important applied goals that will be of societal value.